Scanning Electron Microscope Integrated Into Electron Microscopy & General Biology Curriculum

The scanning electron microscope acquired is helping students taking introductory and advanced courses in biology the ability to directly visualize cell and tissue microanatomy in three dimensions. The scanning electron microscopy course developed complements a course in transmission electron microscopy, and together they form the basis for developing an A.S. degree program in Electron Microscopy sciences that will attract a larger audience from the teaching and research community of the region.